Mathematical Sciences: Topics in Algebraic Geometry

This award supports the research in Algebraic Geometry of Professors Ziv Ran and Mei-Chu Chang of the University of California at Riverside. Dr. Ran plans to work on problems related to generalized linear systems and their applications, higher Noether-Lefschetz loci, deformations of maps, and secants and projections of projective varieties. Professor Chang plans to work on problems related to the slope of moduli spaces of curves, and codimension-2 subvarieties of, and vector bundles on, projective spaces. For the first year of this award, the postdoctoral associate Dr. Angelo Lopez will continue his research on Noether-Lefschetz theory and the Hilbert schemes of space curves. This is research in the field of Algebraic Geometry, one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from Algebra, but from Analysis and Topology, and conversely is finding application in those fields as well as in theoretical Computer Science and in Robotics.